Mathematical Sciences: Semilinear Partial Differential Equations and Their Applications

The investigator studies stability of solutions of some reaction-diffusion equations that lck compactness or Liapunov functionals. Here specific issues include optimal conditions on the initial value for global existence of a solution, limiting sets of global solutions, and topologies in which equilibria or traveling waves are stable. He also studies point-concentration phenomena of solutions of elliptic equations in unbounded domains. The rates and locations of concentration are among the main questions. All the equations studied are model equations from biology, chemistry, or mathematical physics. Better understanding of these important equations provides insight into the underlying scientific questions. But a thorough study of the equations is difficult because of a lack of general tools to deal with nonlinear equations. Hence the problems and techniques for solving them are of intrinsic mathematical interest also.